Mathematical Modeling and Computer Simulation of Moving Boundary Problems in Biofluids

Dillon
9805501
The investigator develops mathematical models and
computational methods for studying two specific moving boundary
problems in biofluids: the motion of eukaryotic cilia and
flagella and the mathematical modeling and numerical simulation
of the growing embryonic vertebrate limb bud. The model for the
cilia and flagella axoneme incorporates discrete representations
of the individual dynein arms, a mechanical model of the
axoneme's elastic structures such as the microtubules and nexin
links, and a continuous description of the surrounding fluid
mechanics. The model for limb bud outgrowth and patterning
consists of a fluid-mechanical description of the limb bud
tissue, a reaction-diffusion-advection component that governs the
spatio-temporal distribution of growth factors and morphogens
produced in specialized regions such as the apical ectodermal
ridge and the zone of polarizing activity, and a moving elastic
boundary that represents the limb bud ectoderm's viscoelastic
properties. In the three-dimensional model, the limb bud ectoderm
is modeled as a network of nodes connected by linear elastic
elements. The investigator also develops an algorithm for
imposing the appropriate boundary conditions in solving the
reaction-diffusion-advection equations. Because each of these
models includes a fluid-mechanical representation, the
investigator uses a similar computational approach based on the
immersed boundary method and the computer codes share many of the
major subroutines.
The purpose of this research project is the development of
mathematical models and computational methods for studying moving
boundary problems in complex biological systems. The investigator
develops two types of models: one for the motion of eukaryotic
cilia and flagella and the second for the growth dynamics of
multicellular biological systems. Both of these models involve
new approaches to the modeling of viscoelastic materials in
biology and share a common computational point of view. The
object in the first project is to develop a three-dimensional
model for the individual cilium or flagellum. Although a great
deal has been discovered regarding the biochemistry,
ultrastructure and movement of eukaryotic cilia and flagella, the
mechanisms governing the control of oscillatory motion and
bending are not well understood. The goal of the cilia and
flagella modeling is to develop a three-dimensional model that
can serve as a platform for studying the mechanochemical
mechanisms that control the waveforms. Growth plays an important
process for multicellular organisms as well as communities of
single cell organisms. The investigator develops a model of
vertebrate limb development that incorporates the growth and
movement of cells and tissue within the developing limb bud, the
transport and production of growth factors within the limb bud,
and a moving boundary that represents the mechanical and
biochemical properties of the limb bud ectoderm. The development
of this model and the computational methods for solving the
associated mathematical equations has application to the study of
a variety of multicellular systems where growth is an essential
feature, including growth and pattern formation in developmental
biology, the growth of bacterial colonies, as well as tumor
growth. An important aspect of this project is the development of
numerical methods for studying the models; advances in this area
can be used in a variety of problems in the field of
computational biofluids.